Industry/University Cooperative Research Centers Evaluator Program

The Center for Interactive Computer Graphics is an Industry/University Cooperative Research Center that is "self- sufficient." A new program now allows the NSF to fund the evaluation activities of "self-sufficient" Industry/University Cooperative Research Centers. This project funds the evaluation studies for the Center for Interactive Computer Graphics.